Optical Generation of Coherent Hypersonics in the 100GHz to THz Range

The proposed research will extend the optical technique of generating and detecting coherent ultrahigh frequency ultrasonics from the 100 GHz range to the THz range. The generation of THz waves will be accomplished by using specifically engineered quantum-well structures of alternating AlGaAs and GaAs layers. This quantum-well structure will be designed to be a static image of a sound field. Subpicosecond optical excitation of hot electron and hole carriers and subsequent non-radiative relaxation of the carriers in the pattern prescribed by the quantum well structure will lead to selective excitation of coherent acoustic waves with the same wavelength as the well period. The structures will be designed to provide acoustic wavelengths corresponding to THz frequencies. The detection of the acoustic wave amplitude will be accomplished by using a specifically designed single quantum well layer (optical detector layer) to follow the acoustic strain amplitude through the modulation of the exciton resonance. Theoretical modelling of the optically driven strain fields, through both non-radiative relaxation and photostriction effects, will be carried out in parallel with the experimental studies. The propagation and transmission of these high frequency acoustics at interfaces and within the periodic well structure will also be treated. This work will provide an all optical acoustic transducer, compatible with diode pumped micro laser sources, as a future generation of acoustic devices for imaging.